Mathematical Sciences: Differential Equations in the ComplexDomain and Nevanlinna Theory

Work on this project will develop three lines of mathematical research. They include investigations into growth, oscillation and other properties of solutions of differential equations in the complex plane. Particular emphasis will be placed on the determination of zero frequency and value distribution for solutions of linear equations. Information regarding such characteristics are to be read from the coefficients of the equation and their magnitude. In addition to linear theory, studies will be made in estimating the growth of meromorphic solutions of algebraic differential equations. Partial results have been obtained for second-order equations but nothing to date has been tried in obtaining uniform growth estimates for equations of higher order. A second line of work will be concerned with problems in harmonic analysis, with particular emphasis paid to the fine structure of absolutely convergent Fourier series. This includes studies on sets where these series are restricted and the classification of the resulting function spaces. Work will also be done on problems related to removable sets for analytic functions. These are sets, which can be deleted from the domain of an analytic function without changing the uniqueness of the function nor its values, which can be recovered across the removable set. The third thrust maintains continuing work on areas of harmonic measure and parabolic potential theory. Applications of harmonic measure to growth rates of analytic functions have grown sizeably in recent years because of very sharp estimates developed from research of this type. In addition, results on parabolic potential theory provide general information concerning solutions of the heat equation by measurements of parabolic capacity.